Numbers Alive!

9255782 Long The Numbers Alive project will model the use of number sense and provide opportunities for its practice through the production of ten half-hour television programs for students, one program for parents and care-givers, and print materials in support of both types of programs. The targeted student audience is fifth and sixth graders. The print materials supplement the televised programs. The series emphasizes number concepts and problem solving strategies in support of the NCTM Standards. ***